Space Weather: Numerical Magnetohydrodynamics (MHD) Study of Coronal Mass Ejections (CMEs): Initiation and Propagation

A three-year research program is pursued with the goal of using numerical magnetohydro-dynamic (MHD) models and observations to sturdy the initiation and propagation of solar coronal mass ejections (CMEs). There are two components to this activity, (i) to study the fundamental physics of solar eruptive phenomena, specifically the CME initiation process and propagation, and (ii) to predict the disturbed solar wind parameters which are important to solar-interplanetary-magnetosphere coupling studies. The overarching objective of this work is to lay the foundation for the development of a science-based space weather predictive model.